Superrigidity, Actions on Manifolds and CAT(0) Geometry

The proposed research studies the interaction between dynamical
systems and geometry. Work of Furstenberg, Mostow and Margulis
shows that understanding certain dynamical systems is an
important tool in the study geometric properties of symmetric and
locally symmetric spaces. . One important property of symmetric
spaces is that they have non-positive curvature. The
investigator plans to extend this work in several inter-related
directions. The study of symmetric spaces will be generalized to
include more general spaces of non-positive curvature as well as
more general maps between symmetric spaces. This raises the
possibility of purely dynamical applications. The group of
diffeomorphisms of a compact manifold acts on the space of
square-integrable Riemannian metrics, which is naturally an
infinite-dimensional space of non-positive curvature. The
investigator will attempt to exploit these relationships to prove
long-standing conjectures of Zimmer.

Dynamical systems is an important and relatively young field of
mathematics that investigates the evolution of physical or
mathematical systems over time (e.g. fluid flow). New ideas from
dynamical systems theory such as chaos and fractals have had a
profound impact on our perception of the world. One of the
deepest and most influential mathematical applications of
dynamical systems has been the study of geometric properties of
spaces with "many symmetries". The proposed research will extend
our understanding of this deep connection between geometry and
dynamics.